Enhancing Biodiversity Education and Communication -- A Planning Grant

The Biodiversity Project is requesting funds to plan a national conference on the topic of global biodiversity. The goal of the conference is to build an education agenda for biodiversity that will identify successful programs, provide strategies for reaching underserved and underrepresented groups, foster collaboration and coordinate financial support for biodiversity across agencies. The planning process will yield a conference agenda, a list of invitees, a list of potential speakers, goals, themes and activities, as well as identification of model projects. A budget and fundraising plan will also be developed.